Linnaean Plant Name Typification Project

The scientific names of plants and animals ideally remain stable in usage over the years, and thus serve as efficient and effective indexing devices for knowledge of the biological world. Disputes do arise from time to time, but these are settled largely through the application of the so-called "type" method, the identification of a particular specimen in a museum collection as the type of a particular name, for each and every published scientific name. Question or confusion about the applicability of a name can thus be resolved by reference to an actual specimen. For the majority of Carl Linnaeus's 8,900 named species and varieties of plants, unfortunately, there are no clearly fixed type specimens, despite the importance accorded Linnaeus's publications as the universal starting-point for scientific naming of plant and animal species. The Linnaean Plant Name Typification Project is designed to provide a thorough assessment of the typification (assignment of type specimens) of all of the plant names published by Linnaeus (1707-1778). Drs. Porter Lowry and James Reveal and a post- doctoral associate will work with Dr. Charles Jarvis of the British Museum (Natural History) where Linnaeus's collections and library now reside. The results will be published in an annotated catalogue that will also contain detailed taxonomic notes and the complete citation of all relevant nomenclatural literature. Results will also be incorporated into computer databases maintained for the Flora North America project and other floristic enterprises. This will establish a basis for the consistent and stable application of these important and widely used plant names, many of which apply to crop plants and other economically significant species, and will serve as an essential reference for all botanists who must deal with Linnaean species names.